MGR Honorable Mention: Amanda M. Brown

This special award will give Amanda Brown additional flexibility in pursuing her graduate studies and research initiation in cellular and molecular biology. This award will strengthen minority research participation in this area.